Information Networks

This project takes a broad information-theoretic approach to the exchange of information over a network of many users in the presence of interference and noise. The problems considered include: distributed transmission and reception of information; distributed computation; distributed data-compression; the cooperative use of distributed data; the role of feedback in communication networks; the theoretical contrast of CDMA, TDMA and FDMA in mobile communication environments; and the investigation of distortion-free rate distortion theory. Also considered are certain information-theoretic questions concerning: speech processing; speech recognition; data compression; investment; energy bounds for computation; and thermodynamics. It may also be possible to show the formal identity of rate-distortion theory and investment theory and ultimately to demonstrate that the work in universal data compression can apply directly to universal investment algorithms. The research seeks a unified view of distributed communication and data processing. Steps toward such a theory should have good practical applications, as recent advances in CDMA and universal data compression attest.